Enhanced Engineering Materials-Evaluation Laboratory

This project enhances this institution's already existing materials laboratory by incorporating: a PC-based multi-channel stress-strain-temperature data acquisition and display system that permits more insightful student analysis of material response to static and low-frequency dynamic loading; and, integrating a CCTV display system with an inverted metallograph and other optical equipment, permitting classroom demonstration and group laboratory examination of microstructures and fracture surfaces. This award is being matched by an equal sum from the grantee.